U.S.-France Cooperative Research: Molecular Analysis of Abscisic Acid and Gibberellin Action in Arabidopsis

This three-year award supports U.S.-France cooperative research between Brian Hauge of the Massachusetts General Hospital and Jerome Giraudat of the Institute of Plant Sciences, the French National Center for Scientific Research. The objective of their research is to investigate plant-hormone action at the molecular level. They propose to characterize plant hormone biosynthetic and response genes in Arabidopsis. They will clone genes which are involved in abscisic acid (ABA) and gibberellin (GA) biosynthesis. Dr. Hauge is experienced in cloning the GA biosynthetic pathway. This is complemented by Dr. Giraudat's involvement in synthesis of the ABA hormone and his expertise on hormone receptors. Their combined efforts, coupled with the clones and maps from their respective laboratories, will facilitate rapid and efficient cloning of these genes. The molecular and genetic characterization of GA and ABA hormonal action will provide important data regarding the mechanism governing plant-hormone interaction. Since this project will also generate physical maps in the vicinity of the interaction, the collaboration will contribute to the overall mapping of the Arabidopsis genome.